Homotopy Theory, Loop Spaces, and Group Cohomology

9704410 Cohen This project explores connections between topology, group theory, and certain constructions inspired by the classical Yang-Baxter relations in physics. Three main areas arise as follows: (1) One could consider ``braidings'' of a finite number of higher dimensional spheres (or suspensions) in a fixed manifold as an analogue of the classical Artin braid group. The main examples here arise as the universal Lie algebra that satisfies the Yang-Baxter relations of classical physics, which concerns collisions of particles. The homology of the attached function spaces is precisely the universal enveloping algebras of these ``universal Yang-Baxter Lie algebras.'' The spaces under consideration are loop spaces of classical configuration spaces as well as ``orbit configuration spaces'' as studied by M. Xicotencatl. The loop space homology of many of these spaces is shown to be the universal enveloping algebra of a Lie algebra that is defined in terms of the Yang- Baxter or infinitesimal braid relations. The underlying manifold can be a homogeneous space or a manifold with a Euclidean factor. In the case of ``orbit configuration spaces,'' these same relations also appear in knot invariants as studied by L. Kauffman. (2) The intimate link between the structure of certain choices of function spaces in homotopy theory and moduli spaces of curves within classical algebraic geometry is studied. The connecting tissue is the link between Dehn twists and Whitehead products. These connections are used to give homological calculations. Here, the space of maps from a fixed surface to a sphere is considered. These spaces stably split, while the stable summands are Thom complexes of bundles with base given by certain moduli spaces of curves. In the case of finite genus with marked points, homological calculations are shown to be an analogue of cyclic homology, while some specific calculations are carried out. The plus construction for the classifying space of th e stable mapping class group is shown to split. One factor gives the stable homotopy groups of spheres. (3) Classical methods in combinatorial group theory are used to attack problems on the growth of the torsion in the homotopy groups of certain spaces. Simplicial methods are used as well as techniques from classical methods of W. Magnus on embedding groups as units in certain associative algebras. Here, the homotopy groups of double suspensions all of whose homology is torsion are studied. The main tool is an inverse limit of finite p-groups. This tower is an algebraic analog of the Goodwillie tower of the identity; the groups at each stage are central extensions with centers at each stage given by the mod-p reductions of modules Lie(n), a module of the symmetric group on n letters of rank (n-1)! that has occurred ubiquitously in homotopy theory. Ordinary braidings of strings are at the foundation of these problems. One could also imagine braiding other geometric objects such as planes, spheres, or torii. These braidings force symmetries that have occurred previously in physics from considering collisions of particles and are known as the Yang-Baxter relations. The first part of this project is a study of these symmetries for higher dimensional geometric objects. Next consider the surface of a doughnut with many holes removed. In a second direction, the ``smooth deformations'' of this surface are considered. The main thrust here is to analyze the ``holes'' in these spaces of ``smooth deformations'' as they appear in many contexts in physics, string theory, geometry, algebraic topology, and holomorphic maps. A natural continuation is to understand how spheres of large dimension move around in space provided only continuous deformations are permitted. This problem has been the key to others and is one of the main problems in homotopy theory on which there has been interesting progress. These spheres move in much the same way that the hour hand moves around a clock. The actual numbers are quite complicated, and part of this project is to understand the uniform structure here. ***